A Multi-Channel Array Ground Penetrating Radar System for Rapid Subsurface Investigation

An innovative multi-channel array (MCA) ground penetrating radar system will be developed that, in many ways overcomes drawbacks of current single channel systems. First, the MCA will reduce the total survey time dramatically; multi-offset two-dimensional and zero-offset three-dimensional data can be efficiently obtained. Second, the MCA reduces strong surface clutter by steering beams in the downward directions, thus improves the signal-to-noise ratio of subsurface reflections. Third, the MCA can focus a diffuse radar beam in an absorptive medium for deeper penetration. The proposed R & D will produce a useful tool for rapid subsurface investigation. The Phase I project involves two parts. First, the advantages and feasibility of the MCA method for three-dimensional imaging will be illustrated by numerical simulations, and second, a block diagram of the proposed MCA system will be outlined for future prototype construction.